Ion-Channels and Pumps in Wild-Type and Mutant Yeast

The goal of this project is to study the function of individual ion channels and pumps involved in membrane transport and bioenergetics. The proposed research will use patch-clamp methods and lipid-bilayer reconstitution to investigate ion channels and pumps in the plasma membrane of the yeast Saccharomyces cerevisiae. The initial goals will be to characterize the behavior of potassium ion channels and the proton pump working in isolation. To relate the patch-clamp data to whole-cell physiology, the function of the channels and pumps in wild type yeast will be compared with that in known transport mutants. Currently mutants of the PMA1 gene are being studied. This gene codes for the plasma membrane ATPase, and its mutation gives rise to a variety of phenotypic changes in cell function, including altered coupling between the pump and potassium transport. Patch clamp experiments thus far show differences in function of voltage-gated potassium-ion channels for wild-type and for transport-deficient mutants. In all cells the major ion transporters work in concert to accumulate certain ions within the cytoplasm in concentrations much greater than in the external environment while excluding other ion species. This highly selective control of the ionic environent, though essential for normal cell growth and development is still poorly understood. In particular, it is not really known how voltage-gated ion channels in inexcitable cells interact with electrogenic ion pumps to control the membrane potential and how membrane potential, in turn, acts in regulating the function of various membrane channels and pumps. The results of this research should provide important new insights into this fundamental problem in cell biology.